Upgrade of the Middle Atlantic Mass Spectrometry (MAMS) Facility

This award provides funds to the Mid-Atlantic Mass Spectroscopy Laboratory (MAMS) for purchase of a new high resolution, double- focussing mass spectrometer and support of a postdoctoral fellow who will be active in technique development with the new instrument. MAMS is an NSF funded regional facility at The Johns Hopkins University that provides mass spectroscopic analyses to investigators at a number of institutions, either as a service or through collaborative research projects. Dr. Cotter is an outstanding young investigator known particularly for his technique development activities in use of time of flight (TOF) and plasma desorption mass spectrometry which he proposes to continue. The new instrument will replace two older instruments of differing types. Collaborative projects include structural studies of lipids and composition of lipid membranes, structure function relationships in enzymes and other proteins, and structures of oligosaccharide side-chains on glycoproteins and glycolipids. In the last decade or so, mass spectrometry (MS) has become a technique of increasing usefulness to biologists and biochemists. MS is of particular use in the analysis of lipids, of polysaccharides, of the types and sites of naturally occurring modifications of proteins, and of other aspects of protein structure including primary sequence. Because of the expense of their purchase and operation of the spectrometers, the disparate types of biological problems for which MS is useful, and the real but often infrequent need for MS in a given research project, mass spectrometers are particularly suited for a service facility such as MAMS that provides analyses for investigators at a number of institutions. To be of maximum benefit, such facilities should be equipped with sensitive and reliable instruments which minimize the risk of sample loss. The purchase of a new spectrometer should insure that the state of the art MS is available to the research community through the MAMS.